Interactive Computer Laboratory Projects for Mathematics Majors

This project will support establishment of a computer laboratory in which students use powerful software for interactive computational investigations and numerical experiments. It is being funded under the Instrumentation and Laboratory Improvement (ILI) Program, which has the goal of supporting projects to develop new or improved instrument-based undergraduate laboratory courses in science, mathematics, or engineering. The Instrumentation and Laboratory Improvement Program provides matching support for the instrumentation necessary to implement undergraduate instructional improvements at U.S. colleges and universities. In particular, the main objective of this project is to bridge the gap between where the students currently are and where the faculty are in their own professional use of computer hardware and software. This will be done by restructuring the applied mathematics and numerical analysis sequences so as to include a computer laboratory that is based on student projects using MATLAB for interactive numerical investigations.